Large-Scale Displacement High Performance Liquid Chromatography for Separation of Peptides and Proteins

This proposal seeks to determine the feasibility of scaling up High Performance Liquid Chromatography (HPLC) separations in the displacement mode of chromatography for the production of pharmaceutical grade synthetic peptides and recombinant proteins. In certain cases, HPLC is the only large scale process step that yields the purity levels required for human therapeutic use. Conventional elution chromatography can be conveniently scaled up to the level required in manufacturing, but is expensive, poorly utilizes column capacity and is difficult to reproducible operate. The displacement mode is performed under conditions similar to conventional HPLC operations, but instead of a gradient in eluent strength, the feed components are displaced from the column by a carefully chosen solution containing a component that is more strongly adsorbed than any of the feed components. The purified product exits the column in adjacent bands of individual components just ahead of the displacer front. Concentrations and column loadings in this mode of chromatography are typically ten- to one hundred-fold higher than in elution chromatography, and so displacement more fully exploits the column and equipment capacity. These factors together with simplified control aspects make displacement chromatography a promising manufacturing step.